CSR: Small: RUI: Octopus OS: A High-Performance Cloud OS with Accurate Resource Abstraction.

This project aims to develop a high-performance cloud operating system (OS), called Octopus OS,
that can adapt to the dynamic cloud environment. Instead of running on a physical machine,
the OS now is often running in a virtual machine (VM) in the modern cloud where the resources
are highly dynamic due to resource sharing and VM migration. However, the traditional OS
cannot manage the virtualized resources efficiently due to being unaware of the resource dynamics,
leading to low resource utilization and poor application performance in the cloud. Therefore,
the proposed Octopus OS would create and manage the accurate abstractions of the dynamic
resources, and develop new algorithms to fully leverage the unique characteristics of the virtualized
resource, which would greatly improve application performance and resource utilization in the
dynamic cloud. This work can advance the cloud OS by serving as a framework for optimizing the
utilization of various virtualized resources. The outcomes will be released for public use. Hands on
projects will be created during the project development to enrich existing courses related to
OS and cloud computing. This project will involve students from underrepresented groups and promote
research in computer systems for all undergraduates.

Four steps will be taken to achieve the project goal. First, the mismatches in major virtualized
resource abstractions (i.e., CPU, memory, and cache) will be analyzed in a controlled environment
to understand their impacts, including resultant system abnormal behavior and application
performance degradation. Second, accurate resource abstractions will be created to fix the identified
mismatches using probing techniques. Specifically, a set of micro-benchmarks, called vProbers,
will be developed to profile the dynamic nature of the virtualized resources without relying
on the hypervisor support or application porting, making this solution practical in the emerging
multi-cloud environment. The accurate resource abstractions probed within Octopus OS can also
be leveraged by cloud application and language runtime, and are critical to provide resource visibility
for cross-cloud optimizations. Third, the new abstractions will be exposed to Octopus OS to
make it virtualization-aware. New algorithms will be developed to fix existing system abnormal
behavior and unlock the potential performance benefits of the dynamic resources. Fourth, experiments
with resource-demanding benchmarks in various public clouds will be conducted to evaluate the ability of
the proposed Octopus OS to adapt to the dynamic resources in the multi-cloud environment.